Assistance to Banks During the Great Depression

9409768 Calomiris This research will address two issues involving the banking system during the Great Depression. First, it will examine the role of the Reconstruction Finance Corporation in the recovery of the banking system during the Great Depression. Second, it will examine the extent to which interbank externalities played a major role in the crisis. The theory that banks that were in trouble withdrew funds from healthier banks thus perpetuating a liquidity crisis in the other banks, is referred to as the "contagion effect". The empirical research will use data for banks across the United States for the period 1930 to 1933. This project is of timely interest because it addresses the role of federal assistance in the banking system. The study should offer important new insights into the sources of banking failures during the Great Depression. The results would also shed some light on the effects of federal assistance on bank performance during the Depression.